Doctoral Dissertation Research in Political Science: Nominations

A small army of administrators and high-level staff are required to operate the departments and agencies of the U.S. government. While the bulk of administrators are career civil servants, the high-level positions are filled through the appointments process. Presidents, who wish to see their policy goals implemented, have a strong incentive to control who is appointed to the key posts. For many executive branch positions (approximately 1,100), Senate confirmation is required.

Despite the fact that conflict between the president and the Senate would seem likely under these conditions, few nominees are denied confirmation. In fact, presidential nominees are often confirmed with overwhileming majorities in the Senate. The success of presidents is attributed to their anticipation of the Senate's wishes and, for many positions, apparent Senate indifference. There are exceptions. Some nominees have to wait month for consideration and some are never given a vote. The high presidential success rate then masks a pattern of strategic delay, which is where the conflict between the two branches actually exists.

This study examines which candidates are delayed. It is important because it is not well understood. We know more about inter-branch relations in other realms of interaction, such as legislative politics and judicial nominations.

In this study, previous theories concerning partisanship are updated to take into account how agency-level characteristics may influence outcomes. For example, some agencies are considered to be more silimar to and in greater agreement with a give president than other agencies. These updated theories will then be tested using an expansive data set covering individual appointments to executive agencies and independent regulatory commissions between 1981 and 2010.

With regards to broader impacts, the results of this study may be of interest to policy makers. The data developed in this project will be made available to the large scholarly community and the public.